SHF: Small: Collaborative Research: Understanding and Evolving Search-based Software Improvement

Software is pervasive, supporting entertainment, finances, health care, travel, and social interactions. Latent software glitches, or bugs, are costly to diagnose and repair. Today, most software bugs are repaired by highly-trained software engineers, but it is uneconomical to repair all such bugs manually, and even for important security-critical problems there can be long delays between bug discoveries and fixes. This project develops improved methods for automatically finding repairs for software bugs, thus addressing a key component of the high cost of software maintenance. Techniques for automated software improvement have matured over the past
decade, and industry has begun adopting the more successful approaches. Despite these successes, current methods can repair only a fraction of presented bugs. The project focuses on extending the range of existing techniques, which search for small changes to the buggy program that will repair the error. Current approaches use search that is analogous to "looking for one's keys under a streetlamp": they search where it is easy, not where it would be most effective. By leveraging insights from evolutionary
biology and on-line learning methods, new algorithms will be developed that explore more aggressively, thus finding more repairs for more complex bugs more often and more consistently. In addition to repairing bugs, the new algorithms will be tested on other aspects of software improvement, for instance, reducing how much energy a program uses when it executes.

All search algorithms face a tradeoff between exploration and exploitation, balancing continued refinement of current good solutions against looking for even better solutions farther afield. Current methods for search-based software improvement overemphasize exploitation, limiting searches to only one or two changes to the original program. To search more aggressively, the project focuses on the space of "neutral" or "safe" program edits, adapting the concept of the space of neutral mutations in biology, where there is extensive theory and analysis to describe its topology and account for negative interactions among mutations. The project: (1) adapts these analyses to the software domain, (2) uses them to design new program-improvement algorithms, and (3) tests the algorithms quantitatively using three important software-improvement domains: software repair, energy optimization, and optimizing speed/accuracy tradeoffs. The resulting algorithm is a radical departure from existing search-based methods, because it eliminates two key components: selection of the highest-performing samples from a population and recombination of high-performing partial solutions. By focusing on exploration, and by quantifying important properties of the search space, the project complements work by other researchers to improve mutation operators, fault localization, and fitness functions.